Microwave Imaging via Space-Time Signal Processing for Early-Stage Breast Cancer Detection, Monitoring, and Treatment

0201880
Hagness
Under this Investigator Initiated Award, studies will be preformed to develop an ultrawideband microwave imaging method for detection, monitoring and noninvasive treatment of early-stage breast cancer. The intrinsic dielectric-properties contrast between malignant and normal breast tissue provides the basis for highly sensitive detection of malignant lesions using microwaves. The objectives are to: 1) develop robust space-time signal processing algorithms that exploit the dielectric-properties contrast for the detection and monitoring of malignant lesions, 2) develop space-time signal-processing algorithms for non-invasive microwave hyperthermia treatment of malignant breast lesions, 3) investigate the performance of the approach for early-stage cancer detection, monitoring, and treatment using anatomically realistic numerical breast models, 4) develop realistic physical breast phantoms and pre-clinical hardware prototype instrumentation, and 5) investigate the performance of the approach for breast cancer detection using the pre-clinical instrument in both synthetic breast phantom and ex vivo breast tissue imaging experiments. The proposed approach offers the potential of a easy-to-use, low cost, comfortable, non-ionizing breast screening technology capable of reducing the rate of false negatives and false positives associated with conventional X-ray mammography. The treatment protocol will minimize the complications, discomfort, and need for invasive procedures for women with breast cancer.